REU SITE: Summer Junior Fellowships for Undergraudates in Physics Research

9424089 Fletcher The Research Experiences for Undergraduates Site" at the Physics Department of Florida State University will be continued. Students are recruited nationally, with an emphasis on the southeast. The participants are involved in a variety of diverse research activities in the Department. ***